An Object Flow Computer for Object-Oriented Database Applications

This project focuses on designing and evaluating an Object Flow Computer for large database applications. The main features of this parallel system are (a) the direct support of an object-oriented semantic association model, which can model complex data more explicitly than existing data models; (b) the use of a two-phase query processing technique, which can drastically reduce the amount of data to be transferred among parallel processors; (c) the use of a vertical fragmentation model based on semantic properties of data, which increases the degree of concurrency and minimizes unnecessary data transfers; and (d) the integration of a number of software and hardware techniques to solve very large database management problems. Research is carried out on analyzing the cost-performance tradeoffs in designing object-oriented processing functions in hardware and software. An object-oriented database management system possesses many desirable features, which include data abstraction, inheritance, polymorphism, information hiding, and uniform treatment of data and meta-data. The extension of object-oriented database management systems with semantic modeling holds great promise in supporting advanced application, such as CAD/CAM, CASE, and office automation. However, many of the essential techniques and their implementation in hardware and software are not well understood. This project addresses the design tradeoffs subject to technological and application requirements from an analytical and experimental points of view. Results developed will lead to more efficient and faster object-oriented database management systems.